Properties T, Tau and Kazhdan constants

The main aspect of the project is to study the expansion properties of
Cayley graphs and to understand various representation
theoretic properties of pro-finite and discrete groups.
More specifically, the PI will study the representation theory
of the automorphism groups of free groups and the universal lattices;
and will use the results to construct new examples of expander graphs.
This may lead to better understanding widely used algorithms in
computational group theory like the product replacement algorithm.
Furthermore, findings from this project may have connections
to more distant topics like three-dimensional manifolds
via the Thurston Conjecture and the Virtual Haken Conjecture.

Expanders are highly connected finite graphs which have
many applications in combinatorics and theoretical computer science.
Informally, a graph is an expander if it cannot be
separated into two large pieces by removing a
small number of vertices and the adjoining edges.
A standard counting argument shows that
a randomly chosen graph is a good expander.
Unfortunately this argument does not allow for the
explicit construction of expanders, required for many applications.
The first explicit expander graphs were constructed by
Margulis using Kazhdan property T. The aim of this project is to
understand how good these expanders are by estimating the related
Kazdan constants. As well as objectives which would be both deep
and of practical use, the project has elementary aspects
which can be presented at an undergraduate level
and thus serve educational purposes.